Collaborative Research: Defining the Atmospheric Deposition of Trace Elements Into The Arctic Ocean-Ice Ecosystem During The Year-Long MOSAiC Ice Drift.

This project will use a Beryllium 7 (7-Be) method in a year-long expedition as part of the international Multidisciplinary drifting Observatory for the Study of Arctic Climate (MOSAiC) expedition to assess the seasonal variability of aerosol deposition. This is the first modern opportunity for such a comprehensive study of the yearly depositional flux of trace elements (TEs) into the Arctic ocean/ice ecosystem. The combination of 7-Be and aerosol TE measurements has been shown to be an effective tool for estimating the atmospheric input of TEs in remote ocean regions where nearby land-based collection sites do not exist. The data generated in this work will be available to allow ground-truthing of models of aerosol deposition and atmospheric input of TEs. Atmospheric deposition is the dominant pathway by which anthropogenically-derived trace elements, especially mercury (Hg), enter the Arctic Ocean, and recent literature suggests that atmospheric deposition of biologically-essential trace elements such as iron (Fe) could play a major role in controlling biological productivity in the Arctic.

Atmospheric transport and deposition of aerosols is an important delivery mechanism of natural and contaminant trace elements (TEs) to the Arctic. Existing data show that atmospheric deposition of contaminant elements like Hg, Pb, and Se may be a major input of these elements to the Arctic, with likely sources being anthropogenic - industrial or power plant emissions associated with fossil fuel combustion in Europe, Russia, and Asia. The atmospheric input of biologically-essential trace elements (e.g. Mn, Fe, Co, Ni, Cu, Zn) plays a key role in controlling biogeochemical processes in the ocean, and recent work suggests this might be true in the Arctic as well. These inputs have strong implications for the ecosystem, and even human health. Assessment of this input is difficult because measurements of deposition rates in remote ocean regions are scarce, and are particularly daunting to take in the Arctic because harsh conditions and limited research platforms make it difficult to obtain quality-controlled precipitation and aerosol chemistry measurements on a routine basis. This research will provide estimates of the yearly atmospheric deposition flux of aerosol TEs (total and soluble), including those of biogeochemical importance as well as pollutant species. The seasonal evolution of partitioning of trace element deposition among the various catchments (ice, water, snow, melt ponds) will also be assessed. The work will involve measurements of 7-Be inventories, 7-Be aerosol activities, and aerosol concentrations of TEs. Field work will be during a year-long ice drift of the MOSAiC expedition through the central Arctic Ocean.

This project will be a component of the MOSAiC expedition, an international initiative motivated by the rapidly evolving Arctic climate system, with thinning sea ice, warming ocean and atmosphere temperatures, strong climate feedbacks, and dramatic implications for society. MOSAiC has broad international support and has been endorsed by international and US institutions as a project that is critically needed to provide foundational information on the changing central Arctic system required to support coupled model development. The ability to provide estimates of the atmospheric input of relevant TEs to the Arctic Ocean will contribute widely to the field of chemical oceanography, including understanding anthropogenic impacts on the region and the role atmospheric input of TEs plays in Arctic Ocean ecology. The lead institution is one of the country's leading minority serving universities, and the lead researcher has undertaken a mentoring program for students involved in its research activities. The team will record short lectures and video logs that can be used in future iterations of his courses to introduce important oceanographic concepts and give his students a first-hand account of life aboard an oceanographic vessel. Other scientists will be asked to grant interviews to add to the breadth of perspectives, and the outreach will emphasize the role of basic scientific research in improving our understanding of natural phenomena and the planet's response to anthropogenic stressors.